Maize Genetics Society Meeting- This conference will be heldMarch 18-21, 1993 at Pheasant Run Conference Center.

The Maize Genetics Society will be held March 18-21, 1992 at Pheasant Run Conference Center. %%% No other meeting in the United States is dedicated to basic maize research. It transcends the traditional disciplines and allows researchers to discuss problems of biology and heredity on an interdisciplinary basis.